MRI: Development of a Quantum Engineering Laboratory

This MRI proposal seeks NSF funds to develop unique cross-disciplinary
Quantum Engineering Laboratory for comprehensive characterization and development
of future generation of information devices that are based on quantum principles.
Particularly, we propose to develop new material characterization tool capable of
simultaneous millimeter-wave, magnetic resonance, and electrical experimental
measurements (correlated spin and charge transport measurements) on arrays of single-
electron quantum dots and other novel semiconductor materials.
Intellectual merit of the proposed activity. The principal features of the proposed
tool are (1) milli-Kelvin temperature and high magnetic field capabilities, required to
reach high spin polarization and a quantum regime for single-electron information
devices, and (2) capability for simultaneous electrical & magnetic measurement, required
to examine the spin physics of charged carriers. Acquiring such a capability we will be
able to understand the fundamental quantum physics in such systems and to exploit the
spin degree of freedom for the new generation of information and communication devices
that are based on quantum principles.
To achieve these goals we propose to develop the first of its kind in the world
materials characterization tool which will utilize high homogeneity (at least 10 ppm) 9 T
magnet with the cold-bore to accommodate a top-loading sorption refrigerator with the
base temperature of ca. 300 mK. It is proposed to develop a specialized top-loading
insert to conduct synchronized electrical measurements while the spin states are
manipulated by millimeter-wave pulses at 95, 130, and, possibly, 225 GHz. The
instrument will be also capable of comprehensive electrical characterization of quantum
dot materials at high spin polarization states as well as for electron spin resonance (ESR)
measurements to understand the mechanisms of relaxation and spin-spin coupling.
The broader impacts of the proposed activity. The major impact of the proposed
activity will be in enhancing the infrastructure for research and education. Specifically,
development of the Quantum Engineering Laboratory at NCSU fits the goal of the NSF
MRI program because it will serve the following high priority areas: (1) to fill the gap
between materials characterization facilities currently available in the USA and new
quantum information devices which are theoretically proposed and which prototypes are
already fabricated and will be fabricated in the upcoming months; (2) to facilitate the
discovery of fundamental phenomena in spin-coupled and other materials containing
unpaired electron spins for quantum information processing; (3) to foster the integration
of these multidisciplinary efforts in quantum information devices and technology and to
train students in this emerging technology;
We are engaged in developing advanced instruction in this field through
providing courses in engineering and chemistry at NCSU. Specifically, it is proposed
that students and postdoctoral research associates will participate in all aspects of the
instrument development and materials research studies. To publicize the development of
next generation characterization tool it is proposed to hold a workshop during the grant
period to educate the scientific community of this emerging technology. Twice a year, a
short training course for students at NCSU and UNC will be offered. The course
materials will be made freely available via Internet.
We believe that these quantum electronic devices will become important to our
Nation and therefore are in support of the national research infrastructure. This belief is
supported by NSFs roadmap in information science and the developing roadmap in
Quantum Computing being currently prepared by a coalition of government research
funding agencies.